World Botanic Garden Congress: Partnerships Within and Beyond the Garden

0001632
PASTORE

The American Association of Botanical Gardens and Arboreta (AABGA) is requesting support for the upcoming World Congress to be held in Ashville, NC, June 25-30, 2000. They intend to develop a theme, "Reaching Out: Informal Learning in Botanical Gardens," in order to enhance informal learning in botanical gardens across the nation. The theme will be addressed through plenary addresses, conference sessions, workshops and tours. A conference publication and a web site will extend the impact of this theme beyond the conference.